Conference on Natural and Adaptive Immune Mechanisms in Insects, December 27-28, 1991, Atlanta, Georgia

This grant is to support a two day symposium on "Natural and Adaptive Immune Mechanisms in Insects" at the 1991 Annual Meeting of the American Society of Zoologists. The symposium will be subdivided into three major sections: cell mediuated immunity in insects; humoral mediators of insect immunity; and suppressive agents of insect immunity. This will be the first time that both the inductive and suppressive sides of insect immunity will be discussed in a common forum in such a comprehensive manner. The contributors to the symposium are either established investigators with prominent reputations in their respective fields, or young investigators who show great promise for the future. The major goal of the symposium is to bring together investigators who are sutdying different aspects of insect immunity, and provide them with a unique opportunity to exchange ideas that will lead to new interpretations of existing data and the development of new collaborations and approaches fo the future study of insect immunity.